Southern California Science and Mathematics Education Collaborative

The Claremont Science and Mathematics Collaborative, a partnership of the Claremont Graduate School, local industrial leaders, expert pre- college science and mathematics teachers, and area school districts, will develop and operate a program to facilitate mid-career moves into teaching by industry scientists and engineers. With the cooperation of their managements, experienced technical graduates in industry who are interested in entering science and mathematics teaching will be recruited into a special program of the Claremont Teacher Education Internship Program. Here they will initially spend one summer in on- campus courses and orientation at Claremont, then one year in a school teaching full time with the support and guidance of a master-teacher mentor, and then one more summer on campus. They can then be certified for teaching in California, and with an additional eight credits they can receive a Master of Arts in Teaching degree. Transition financial support for the participants will be provided by their industrial employers, the Claremont Graduate School, and the National Science Foundation. Industry support will be developed and coordinated by the Technology Exchange Center, an existing organization of local industry, education, and government leaders. Cost sharing by the partners will total 60% of the NSF funding.